AF: Small: Quantitative and Algorithmic Aspects of Semi-algebraic Sets and Partitions

"Divide and conquer," a time-honored technique in computer science and
mathematics, partitions a problem into smaller pieces to make it
easier to solve. This project deepens the study of partitioning in two
directions, both in the context of semi-algebraic geometry -- which is
the study of geometric and topological properties of sets defined by
real polynomial equalities and inequalities.

The first direction is to systematize polynomial partitioning, which
has recently become a powerful tool capable of tackling many
long-standing open questions in the area of incidence geometry. In
computational geometry, the space or sets being partitioned are often
complex but partitioning is by simple objects: splitting by planes or
cutting into trapezoids. Polynomial partitioning allows high degree
cutting polynomials, necessitating more precise degree-based upper
bounds on the topology of semi-algebraic sets and real varieties than
the ones known before, and leading to a very fruitful interaction
between the fields of real algebraic geometry and discrete geometry.
The PI will develop new techniques in semi-algebraic geometry to meet
the new demands imposed on the field by the developments in discrete
geometry, and develop a new theory of polynomial partitioning that can
systematize their study and lead to new applications as well.

The second is to generalize quantitative and algorithmic
semi-algebraic geometry to a much more general and geometric setting
-- the category of constructible sheaves. Constructible sheaves come
with an underlying semi-algebraic partition (on whose elements the
stalks of the sheaf are locally constant). Kashiwara and Schapira
proved a fundamental theorem on the stability of this category under
the six standard sheaf operations (analogous to Tarski-Seidenberg
principle for semi-algebraic sets). The PI will study the quantitative
and algorithmic questions related to constructible sheaves. The
complexity upper bounds and algorithmic results would have wide
applications.

The project will have impact in several areas of mathematics and
computation -- including quantitative and algorithmic semi-algebraic
geometry, discrete and computational geometry, computational
complexity theory and quantitative study of the solutions to linear
systems of partial differential equations. The project will train a
graduate student and a postdoctoral researcher in quantitative and
algorithmic real algebraic geometry and its modern applications.